CAREER: Model-Based Simulation of Wind Turbine Inflow Turbulence and Design Loads: An Integrative Plan for Research and Learning

Abstract for:
Model-Based Simulation of Wind Turbine Inflow Turbulence and Design Loads: An Integrative Plan
for Research and Learning, CMS 0449128

PI: Lance Manuel, University of Texas, Austin

An understanding of the spatial structure of the three-dimensional inflow wind velocity field is important
for the safe design of wind turbines. Current attempts at characterizing this inflow turbulence in design
guidelines are overly conservative and have not been developed following field studies of turbine
performance and simultaneous recording of associated wind conditions (because such tests are expensive).
Also, today's guidelines recommend design loads based on inflow coherence spectral models that have
been shown to be inconsistent with measurements, especially for spatial separations on the order of rotor
diameters and smaller. Moreover, the design guidelines do not employ turbine aerodynamic and structural
dynamic response simulations of sufficiently long durations to match the desired return periods (on the
order of 20 years) typical for ultimate and fatigue limit states. Clearly, there is a need for more field test
programs and efficient modeling procedures to accurately describe the inflow and turbine response so as to
arrive at more accurate design loads.
Intellectual Merit
The proposed career development plan addresses each of the issues raised. First, it offers a novel untried
approach to characterizing the inflow turbulence random field by extracting spatially preferred "modes"
that describe the inflow using empirical orthogonal decomposition of wind velocity statistics and spectra
derived directly from newly available field measurements. Second, it offers an efficient procedure to make
more realistic the possibility of carrying out long-duration aerodynamic simulations for turbine response
while utilizing the decomposition of the inflow structure. Finally, it proposes a framework, based on
structural reliability and response surface concepts, for deriving design loads by combining inflow
characterization with turbine response statistics conditional on inflow.
The proposed plan blends the use of extensive field data with simulation studies in addressing an
important problem that could lead to more economical wind turbine designs and sustain the continued
harvesting of wind as a renewable energy source.
To summarize, at the heart of the proposed research plan are, in order, the following tasks:
(i) development of efficient modeling techniques for characterizing the random spatial structure of
wind inflow using field data - this will yield principal orthogonal preferred spatial "modes" that
optimally describe the wind field;
(ii) characterizing turbine response for the preferred spatial turbulence modes identified in (i) using
turbine aerodynamic simulations; and
(iii) establishing a probabilistic (structural reliability-based) framework that integrates (i) and (ii) to
permit derivation of design ultimate and fatigue loads using simulations long enough to
realistically reflect return periods on the order of 20 years.
Research, education, and outreach activities that relate to this plan are outlined in this proposal.
Broader Impacts
An important point that needs to be made is that despite the tremendous growth in wind energy in the U.S.,
our nation is seriously short of trained engineers in this field and routinely has to seek technical/consulting
assistance from Western Europe. This needs to change, and this career development plan will present some
ideas the PI has to provide such training opportunities to our undergraduate and graduate students including
internship opportunities that will be facilitated by this plan, K-12 involvement, and curriculum
enhancements that the PI has planned. This research study will, it is expected, offer a learning experience
as well for individuals of various backgrounds: graduate and undergraduate research assistants, middle/high
students and teachers, and university students in the PI's undergraduate engineering statistics course and in
a planned graduate wind engineering course. Details related to these activities are outlined in this proposal.
Two significant entities that have expressed their support for the success of this plan include
(a) Sandia National Laboratories, who will provide the field data for the efforts outlined and will also
provide summer research internship positions to five undergraduate minority students; and
(b) the PI's institution's Equal Opportunity in Engineering (EOE) program, who will facilitate the
involvement of an underrepresented/minority student in this research.
Letters of commitment from both these organizations are included in the "Supplementary Documents"
section of this proposal outlining their support.